A National Computer Conferencing Network for Science Education: PSI-NET

With previous NSF funding and support from IBM, an electronic network, PSI-NET, has been established which links all state science supervisors, and is accessible by the NSF, NSTA, and other organizations concerned with school science education. This system will now be extended to science teachers in six states to test the technical feasibility and the utility of this further networking through a single system. IBM will continue to support the development of the system technically. A committee of state science supervisors will guide and evaluate the use of the system in the six trial states to provide a basis for decisions on the desireability of ultimate extension to science teachers in all states. Introduction of state mathematics supervisors onto PSI-NET will also be initiated to evaluate the utility of this additional extension. Cost sharing by the partners will total 159% of the NSF funding.